A New Methodology for Assessing Glacier Mass Balances and Runoff for Global Studies of Climate Change and Sea-Level Rise

ABSTRACT OPP-9634289 DYURGEROV, MARK UNIVERSITY OF COLORADO The researchers will develop a new method for studying the annual cycle of glacial melting in relation to climate change. Satellite imagary will be used to examine large areas encompassing many glaciers rather than traditional methods of studying individual glaciers using time-consuming field measurements. The assessment of annual glacial melting rates is important because it may provide a precursor to climate change and the meltwater will contribute to a sealevel rise. That rise will have potentially serious effects on coastal human populations and must be examined if management policies are required to prepare for the rise.